Planning Visit for Energy Efficiency Improvements in Tunisian Electric Power Industry and Opportunities for Mitigating Greenhouse Gas Emissions

9500127 Rahman Description: This project is to support a planning visit by Dr. Saif-ur-Rahman, Department of Electrical Engineering, Virginia Institute of Technology and State University, Blacksburg, VA, to Tunisia to develop a joint research project on electric energy management to reduce pollution. ***